Improving Instruction for Pre-Service and Inservice Elementary and Secondary Mathematics Teachers

The goal of this project is to improve mathematics instruction for preservice and inservice mathematics teachers by utilizing a networked computer laboratory. By focusing on teaching mathematical content using interactive computer technology, the project is preparing teachers to effectively teach mathematical concepts using technology as they enter the classrooms of the future. Interactive computer technology provides a powerful way to depart from the traditional lecture mode and challenges students to work cooperatively and individually to develop mathematical concepts, to make generalizations, and to solve problems. The computer is helping students develop the ideas of geometry, algebra, probability, and statistics inductively as they are led to generalize concepts and solve problems efficiently. By coupling interactive computer technology with cooperative learning in this project, they are enhancing the mathematics learning of elementary and secondary mathematics students and the students they teach in the future.